Mathematical Sciences: Student Research Activities in the Mathematical Sciences

The investigator mentors undergraduate students in a range of research activities, including the preparation and presentation of papers at professional meetings. Specific topics include theoretical and applied aspects of wavelets, number theory, image processing, graph theory, coding theory, and minimal surfaces. Technical training and education of all parts of the country's population is essential for the nation's success in an increasingly technological world. This project focuses on mentoring and training activities of women undergraduates. It continues in a more formal way the investigator's successful practices in training students and preparing them for careers in areas related to the mathematical sciences.